CAREER: Rational points on varieties and non-abelian Galois groups

ABSTRACT for CAREER proposal DMS-0448750: Rational points on
varieties and non-abelian Galois groups

Principal investigator: Jordan S. Ellenberg

Institution: University of Wisconsin

The investigator proposes to address an ensemble of problems in
arithmetic geometry, centered on the problem of describing the
distribution of rational points on varieties over number fields. The
study of rational points is, on the one hand, passed down to us from
the very beginning of number theory; on the other hand, the present
state of the art in this extremely active area involves ideas from a
wide variety of subjects, including etale cohomology, methods of
analytic number theory, and the complex algebraic geometry of moduli
spaces of morphisms. In the first project, the investigator and his
colleagues will continue their investigation of well-known conjectures
on distribution of rational points and distribution of discriminants
of number fields. In the second project, the investigator will study
the arithmetic of towers of curves; rational points in such towers
seem to be intimately related with objects of non-abelian Iwasawa
theory, a subject which has enjoyed an explosion of interest in the
last five years. The proposed projects will involve a great deal of
collaboration with researchers from every part of number theory and
algebraic geometry, and should provide many opportunities for graduate
students and postdoctoral fellows.

The foundational problem of number theory is this: find all solutions
in rational numbers to an equation. For instance, one can ask for
solutions of the Pythagorean equation: for which rational numbers x,y,
and z is it the case that the square of x plus the square of y equals
the square of z? The Pythagorean equation has been well-understood
for centuries; but many others, like Fermat's equation, present -- to
say the least! -- more serious difficulties, and most equations are
presently beyond our current ability to analyze. In recent years, the
subject of "rational points", or the analysis of solutions of
equations, has been taking shape as a subject of its own, drawing
ideas and techniques from many different parts of mathematics. The
investigator proposes several research projects in the area of
rational points. Because this area of research combines classical,
easy-to-state problems with advanced methods and opportunities for
experimentation, it is very well-suited for fledgling mathematicians.
The investigator will launch a research program for students at
Madison Memorial High School, and will expand the scope of the
Wisconsin Talent Search; the aim will be to develop in Wisconsin an
infrastructure for mathematical exploration, enrichment and research
in secondary school, which will have enough momentum to continue
beyond the duration of the present award.